RUI: Carlin-Type Gold Deposits - Products of Magmatism or Metamorphism?

9614460 Cline The major focus of mineral exploration in the United States today is centered on the search for Carlin-type gold deposits (CTGD). These are large, low-grade, sediment-hosted sytems located in northern Nevada, which are noted for the presence of micron-sized "invisible" gold. In spite of their economic importance, the geological processes that caused the formation of these deposits remains obscure and geological models continue to be descriptive. The main goal of this proposal is to provide ways to identify the geological processes that were essential to the generation of Carlin-type gold mineralization. Specifically, this study will aim to define if fluids involved in the transport and precipitation of metals on CTGD's are genetically linked to metamorphic or magmatic processes. Furthermore, these results will provide new directions for exploration strategies and could produce genetic models that can be used later to explore for CTGD in the Great Basin and other parts of the world.